STTR Phase I: Implementation of a Biometric Data Software Platform to Augment Mental Health Treatment

The broader impact/commercial potential of this Small Business Technology Transfer (STTR)
project is to improve outcomes and decrease costs in the mental health space by engaging
patients starting with their first therapy session through objective progress reporting and
post-session motivation. Patients and clinicians alike will be able to track and assess treatment
progress through self-reported and physiological measures. This innovation builds upon the
strong academic, government, and industry partnerships that will advance research and
innovation in the field of biotechnology. By demonstrating improved outcomes and decreased
costs associated with the utilization of technology, this will pave the way for insurance
reimbursement (using existing CPT codes) to accelerate market adoption. Additionally, as
education of patients and the public improves regarding mental health and PTSD in particular,
the negative stigma surrounding these conditions will decrease and more people in need will
seek help rather than resorting to unhealthy behavior or even suicide.

This STTR Phase I project proposes to represent an innovative approach that provides easy to
interpret results tailored to mental health providers, patients, and other non-technical users.
Current mental health treatment and assessment has lacked qualitative, scientifically-based
measurement. The need for a scientific measurement is evident, as about 8 percent of all
adults - 1 of 13 people in this country will develop PTSD during their lifetime. Currently, 60%
of adults diagnosed with a mental illness don't receive mental health treatment; using proven
science and physiologic measurements as the foundation for improving treatment and
monitoring progress for PTSD can help to alleviate some of the stigma surrounding mental
illnesses. This project aims to demonstrate how implementing a web-based platform can
improve PTSD treatment by providing physiologically relevant feedback to the patient and by
providing a tool for the clinician to tailor the therapy to the individual patient. Patients will have
their subjective measures and physiological data visualized throughout treatment on a software
platform, with progress being tracked through validated assessment scales. Patients will be
compared to others in treatment as usual. Results should yield improved quality of life and
decrease long term healthcare costs for those that use the platform.